Conference: Funding Proposal for 2022 AAAI Doctoral Consortium

This grant supports the Doctoral Mentoring Consortium (DMC) at the Association for the Advancement of Artificial Intelligence conference on Artificial Intelligence (AAAI) that will be held in virtually, Feb 22 - Mar 1, 2022. This is the premier international conference for researchers in artificial intelligence (AI) research across a fully international research community. This activity will bring together a broad community of researchers in the field of AI and support junior researchers at this critical early-career stage. The DMC creates the opportunity to bring in participants who might not have attended an AI conference due to lack of resources. This is especially true for those at smaller institutions and those which have less developed AI programs. Engaging such participants has the potential to draw more talent into AI research, improve research ideas in their formative stage, and engender collaborations across the breadth of disciplines. This event provides students with invaluable exposure to outside perspectives on their work at a critical time in their research and enables them to explore their career objectives.